US-France Cooperative Research: Local Structure and StagingTransitions in Doped Polymers

This award will support collaborative research between Dr. John Fischer, University of Pennsylvania and Dr. Patrick Bernier, Groupe de Dynamique des Phases Condensees, University of Science and Technology of Languedoc, Montpellier, France. The objective of the project is to carry out NMR, X-ray and neutron scattering studies of the local structure and staging transitions in doped polymers. The investigators propose a coordinated program to elucidate the evolution of novel short and long range atomic correlations, as alkali metals are introduced into polyacetylene. In particular, Drs. Fischer and Bernier will examine: 1) the possibility of metallic rather than purely ionic character of the inserted alkali; 2) novel and complex phase equilibria vs. doping concentration, analagous to "staging" in layer intercalates and 3) a first measurement of the Q-integrated partial phonon density of states using incoherent inelastic neutron scattering. The contributions of the two investigators are complementary in three important categories: materials synthesis, measurement capabilities and theoretical expertise. Dr. Bernier and his group have extensive experience with electrochemical doping by alkali metals, the preferred method for studying in situ the evolution of properties with doping. Dr. Fischer's strength is in the vapor and liquid- phase alkali metal doping of carbon-based synthetic metals. The results of this research may provide valuable new information on the structure and electronic properties of doped polymers, with important implications for future materials research.